vBNS Connectivity for the University of Washington

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for an DS3 ATM connection to the Very High Performance Backbone Network Service (vBNS). The connection is to be upgraded to an OC-3c circuit during the second year. Applications include: - Superkamiokande detector analysis of atmospheric and solar neutrino interactions information - Rapid earthquake Alerts and Information Distribution and Real-time seismic waveform data exchange between networks - IRIS Data Management Center data distribution - Optical Astronomy from a Remote Facility Collaborating with: Institution of Cosmic Ray Research, University of Tokyo University of California at Irvine University of New York at Stonybrook (SUNY) University of California at Berkeley University of California at San Diego Apache Point Observatory Princeton University University of Chicago Johns Hopkins University Fermilab New Mexico State University Washington State University Mount Stromlo Observatory, Australia Cerro Tololo Interamerican Observatory, Chile The award provides partial support of the project for two years.